Nevada Information Technology Education (NVITE)

Computer Science (31)

Intellectual Merit: This project is coordinating information technology education, aligning curriculums with national standards, and developing a statewide articulation agreement for Nevada's secondary and higher education system. It is also conducting comprehensive faculty professional development to ensure that teaching meets national standards and students arrive on the job with the skills needed by industry.

Broader Impacts: Information technology is currently responsible for at least 20,000 jobs in Nevada, and that number is expected to grow by 25% in the next 5 years. By connecting Nevada's students to this tremendous opportunity, this project is directly increasing the state's workforce through improvement of high school and community college education. The project is providing the statewide coordination for education systems and businesses which are developing a robust and diverse technological education capacity to ensure the workforce is capable of supporting the state's growing IT industry.